Engineering Research Equipment Grant: A High Speed GraphicsAnimation Work-Station

Equipment (a high performance computer graphic display system with both vector and raster capabilities) is acquired for use in several research projects, and in graduate education, in the Mechanical Engineering Department of the State University of New York at Buffalo. The system will be used in mechanical dynamics research in active-control studies of complex structures, and manufacturing, ergonomic, and biomechanical research.